Collaborative Research on Learning Technologies: Incorporating Computers and Group Work to Develop Effective and Efficient Learning Experiences

9616544 Dubinsky, Ed Gagliano, Ross Georgia State University CISE/EHR/ENG/MPS Collaborative Research on Learning Technologies Program: Incorporating Computers and Group Work to Develop Effective and Efficient Learning Experiences Georgia State University has been awarded funding in the amount of $50,000 for a period of 12 months to initiate a planning effort leading to the creation of a collaborative research program to investigate the effects of using an innovative instructional approach, called ACE Teaching Cycle, on the learning of undergraduate mathematics in relatively large size classes. The ACE Teaching Cycle is based on a cognitive theory of learning and integrates activities of students: writing, writing computer programs and using the programs to represent mathematical concepts, investigating mathematical phenomena using computer tools (both constructed by the student and provided in the form of software packages), and students working in cooperative groups.